Visual Speech and Face Recognition: Common Information Attributes

9617047 ROSENBLUM A series of experiments will test the relation between speechreading (lipreading) and face recognition. Traditionally, the functions of recognizing speech and recognizing the speaker have been thought to involve separate processes and informational attributes. However, recent observations with auditory speech suggest that these two functions might not be as separate as once thought. The same question arises for the visual domain: How do speechreading and face recognition functions interact? The first set of experiments will test if facial familiarity facilitates speechreading. The second series of experiments will explore if the relationship between speechreading and face recognition could be based on the use of common visual information for articulator movements. The experiments in this series will make use of a point-light technique which involves placing small illuminated dots on an otherwise darkened face. This technique serves to isolate articulator movement information and can convey a great deal of speech information. The third series of experiments will test whether face processing and speechreading depend on the two cerebral hemispheres in the same or different ways. These experiments will vary the amount of dynamic information available in the stimulus by using static, moving, and point-light images. The results of these experiments will be illuminating about theories of face and speech perception as well as the general issue of the separability of perceptual processes. The experiments should also help determine the salient information for speechreading and face recognition. This research should ultimately be useful for designing speech and face recognition devices as well as speechreading programs for the hearing impaired. ***